Automation in the Introductory Geographic Information Processing Curriculum

Automated methods of processing geographic data is typically introduced in the undergraduate curriculum after manual methods of map design, construction analysis are taught. This project will provide the fundamental computer processing equipment for introducing automated drafting and analysis of maps and image interpretation methods in both introductory and advanced geographic methods courses, and offer an environment for stimulating student creativity in exploiting automated processing and display methods. Introducing automated methods of designing and drafting maps and analyzing geographic data in introductory cartography and aerial photo interpretation courses is a radical departure from the traditional first stage instruction using manual methods. A novel feature of the project involves independent student research projects that specifically focus on the development of software for use in several other laboratories.